Partial Support of the Board on Infrastructure and the Constructed Environment, Federal Facilities Council

9527100 Little The program includes advisory studies in managing standardization programs for facilities, application of new technology to design, construction and operation of federal facilities, facilities maintenance and repair. Technical reports will be published. ***